Peak Detection and Quantification in NMR Spectra

NMR spectroscopy can provide unique information about the changes in concentration of metabolites in vivo and the structure of proteins in solution. Interpretation of the large, multi- dimensional datasets produced by such studies requires first the detection and quantification of peaks in individual spectra. As new, sophisticated experimental techniques are developed, the difficulties of peak quantificaition are providing major obstacles to efficient data analysis. Standard methods of quantifying NMR spectra rely heavily on manual input and do not address the all important questions of operator bias or variable accuracy of parameter estimates. This project will develop practical and reliable algorithms which can perform a thorough statistical analysis within a reasonable timescale. The new algorithms will be based upon an approach which has proved extremely successful in treating 1-D data with low s:n peaks and variable baseline (PIQABLE). Different types of 1-D spectra, chemical shift imaging (CSI) data, and both J-correlated and distance correlated 2-D H spectra will be considered. By providing the right tools for quantitative analysis, this study will make significant and unique contributions to interpreting multi-nuclear in vivo spectra from extracts, cells or intact tissues, and investigating the molecular structure of proteins in solution.